Equipment to Modernize Undergraduate Laboratories for Molecular Biology and Biochemistry

Equipment purchased through this award is being used to enable students to investigate principles of molecular biology through the development of laboratory experiments and independent research projects. Specific objectives are to include the basic theoretical principles of molecular genetics, gene fusions and molecular biochemistry in the Department's Genetics course and also in Biochemistry -- a course offered jointly by the Biology and Chemistry departments. The need is to provide a "hands- on" laboratory experience in these courses in order to directly illustrate important theoretical principles, while greatly expanding opportunities for students who enroll in the undergraduate research program. The project will enable Roberts Wesleyan students for the first time to participate in the development of reproducible experiments in molecular biology. One feature of the effort is the introduction it provides advanced majors to the rapidly expanding field of recombinant DNA technology.